Nanostructured Pt-x-Si-P-Type Composite Studies for 3-5um Radiation Detection

9313650 Bates Research activities focus upon metal-semiconductor composites for the detection of optical radiation in the 3-5um wavelength portion of the electromagnetic spectrum. Two important detectors used for thermal imaging in this atmospheric window include Hg1-x Cdx Te (x=0.4 to 0.3) and Ptx Si Schottky barrier devices. (The Ptx Si alloy composition varies with the sintering temperature.) The former material has attractive fundamental properties such as a low intrinsic carrier concentration with no~1014 cm-3, a high electron mobility of ue~ 105 cm 2/volt-sec. and long minority carrier lifetimes on the order of 10-6 seconds associated with intrinsic recombination processes. These combine to give systems using this material large quantum efficiencies of 60%. Quantum efficiencies are given on the basis of absorbed photons. Disadvantages include nonuniform properties in two-dimensional arrays and poor mechanical integrity. The latter material, though very uniform in its properties, suffers from low quantum efficiencies of about 1% for thermal imaging and are normally operated at 80 K to suppress the dark current. These factors have contributed to the lack of their more widespread use in the 3-5um wavelength range. The concept involved in these studies is the use of buried Schottky barriers, as produced by dispersing small metal particles typically 5-50nm in size, in semiconducting matrices for the detection of infrared radiation. These structures avoid the trade-off between absorption and quantum efficiency in the choice of metal thickness in the planar structures which contributes to their low quantum efficiencies. The system to be investigated is PtxSi particles in a p-type silicon matrix and this choice is based on the following: (a) like the planar structures of the same materials this system can be made sensitive to radiation in the 3-5um wavelength range; (b) these structures may be produced by well established solid- state growth techniques; ( c) they may be, like the planar strucutures, readily incorporated as an integral part of a larger system using silicon-based technology and; (d) properties such as quantum efficiency responsivity and uniformity may be readily compared to the planar structure as a test of the theory involoved and the feasibility of reducing it to practice.